Second Workshop on Electronuclear Physics with Internal
Targets and the BLAST Detector

***
9812383
Milner
This grant will allow students and junior researchers to attend a workshop which will focus on physics opportunities available with the Bates Large Acceptance Spectrometer Toroid (BLAST). The workshop is widely advertised internationally, and plenary speakers have been invited from the most closely connected programs worldwide. Involvement of junior researchers at the earliest stages of this project will be very beneficial.
***